CAREER: Interplay of Electrons, Lattice, and Topology in Correlated Heterostructures for Quantum Materials and Devices

Nontechnical Summary
Quantum technologies promise major advances in computing, communication, and sensing, but their development is limited by the extreme sensitivity of quantum states to their surroundings. This project addresses a fundamental challenge: how to create quantum materials that remain stable and functional under realistic conditions. The principal investigator (PI) studies a class of engineered materials called heterostructures, in which multiple materials are combined at the atomic scale to produce new quantum properties that do not exist in the individual components. The research involves developing advanced computational tools that enable scientists to design and contribute to understanding quantum materials. With these tools, materials can be designed to exhibit both superconducting and topological properties. Superconductors can conduct electricity with no energy loss. Topological properties refer to those of a robust quantum state of matter that is resistant to disturbances. These designed materials may provide building blocks for future quantum computers and other quantum technologies.

Education and workforce development are integral parts of the project. The PI creates accessible online learning modules on quantum science and technology, organizes immersive summer workshops, and provides hands-on research opportunities for high school, undergraduates, and early-career students. These activities increase awareness of quantum technologies, strengthen the pipeline of students entering physics and related fields, and help prepare a future workforce for emerging careers in quantum information science. All software developed through the project is released as open-source tools with tutorials and training materials, enabling broad community access, and accelerating research advances worldwide.

Technical Summary
The PI aims to establish a predictive computational framework for discovering and designing novel quantum materials and heterostructures relevant to quantum information applications. Conventional Density Functional Theory-based electronic-structure methods often struggle to describe materials with strong electronic correlations, limiting their predictive power for materials discovery. The project advances the combined Density Functional Theory and Dynamical Mean Field Theory framework to enable more realistic modeling of correlated quantum materials and their interfaces. The project has two objectives:

1.) Develop open-source computational capabilities for calculating electron-phonon coupling in correlated materials and heterostructures within the Density Functional Theory and Dynamical Mean Field Theory framework. A finite-difference methodology is developed for evaluating electron-phonon coupling in Dynamical Mean Field Theory, enabling quantitative investigation of how phonons affect electronic correlations, superconductivity, and topological properties. Together these developments provide new capabilities for studying strongly correlated quantum materials. The PI applies these tools to iron-based and other high-temperature superconducting materials and heterostructures.

2.) Create a computational pathway for identifying heterostructures with tunable electronic correlations, topological characteristics, and electron-phonon interactions. Integrated first-principles calculations and low-energy effective models are developed to capture the physics of correlated topological heterostructures that include interface effects, finite-size confinement, and structural engineering. The resulting computational tools are applied to identify experimentally realizable material combinations capable of supporting electronic quantum states of matter and enhanced superconducting behavior.

The developed methodologies are used to discover heterostructures that may provide promising platforms for fault-tolerant topological quantum computing. Broadly applicable theoretical methods, open-source software, and computational tools for the quantum materials community result from this project while advancing fundamental understanding of correlated superconducting and topological states in engineered quantum materials.